Molecular Biology of Nitrogen Assimilation and Growth in Marine Coccoid Cyanobacteria

Kramer 9315091 The project goal is to gain a better understanding of how the growth of coccoid marine cyanobacteria is regulated by nitrogen supply. The approach will be to build a strong theoretical and methodological base using studies of laboratory cultures. The project will be directed towards the development of nucleic acid probes and antisera to glutamine synthetase and nitrate reductase. Together with specific probes for rRNA, these tools provide a direct means to analyze variations in the nitrogen assimilation system and general physiological state caused by variations in nitrogen supply. The results will be used to provide detailed analyses of patterns of gene regulation in chemostat cultures of marine Synechococcus spp. These studies comprise a comprehensive effort to develop and implement the means to determine the molecular biological basis of the responses of autotrophic picoplankton to nitrogen flux in the sea. ***